1992 Gordon Research Conference on Catalysis

Partial support is provided to defray travel expenses of participants in the 1992 Gordon Conference on Catalysis to be held June 29 to July 3 in New London, NH. Funds will be used for invited speakers and to assist young investigators who lack funding to attend the conference.